RIA: Finite Element Methods for Static and Dynamic Contact Problems

9308339 Papadopoulos This research will address certain novel variational formulations of boundary- and initial-value problems in contact mechanics, which are amenable to discrete approximation by finite element methods. The context of the analysis is set to encompass problems involving contacting bodies that may undergo arbitrarily large motions and deformations. ***